Study of the Quasi Liquid Layer on the Surface of Ice

It is proposed to study the quasi-liquid layer (QLL) that occurs on the surface of ice just below the melting temperature. This very basic surface melting phenomenon remains very imperfectly under- stood but is of considerable importance owing to the dominance of the water/ice system in nature. The extensive use of the freez- ing/melting process in the chemical industry adds an element of significant technological importance.